Acquisition of Ultra-High Angular and Energy Resolution Photoemission System

The novel design of this new ultra-high resolution photoemission system will give an energy and angular resolution of better than 5 meV and 0.2 degrees, respectively. The 5 meV resolution is about a factor of 4-5 times better than most current state of the art spectrometers. The 0.2 degrees angular resolution is about a factor of 10 times better than the typical angle- resolved photoemission spectrometer. Most importantly, the analyzer enables one to simultaneously acquire 80 spectra at different angles in the time it would normally take to acquire one spectrum with a conventional spectrometer. In addition, the large analyzer size also dramatically enhances the efficiency of the spectrometer. This means that the new spectrometer will have a total counting rate at least 100 times better than the best spectrometer in the field now. This equipment will be used for a variety or research programs at Stanford University. It will also be made available to researchers from other institutions. The successful implementation of this system will have a very positive impact on many exciting areas of research on advanced materials. This includes the high-temperature superconductors, semiconductors, the fullerenes and their derivatives, magnetic materials, the Mott insulators, and heavy fermion and mixed valence compounds. Some of the key issues in contemporary physics will be very effectively addressed by the extremely high energy and angular resolution made available by the new spectrometer. Examples include the superconducting gap in cuprates and the Kondo resonance in heavy fermions. Acquisition of this system will greatly enhance ongoing and future research, as well as the educational environment at Stanford University and other institutions.